Quantum Nonlinear Science

9625549 Prange This grant supports work of this senior, distinguished theorist whose past contributions have ranged over a variety of diverse areas in condensed matter physics. More recently the PI has been involved in the general area of quantum nonlinear science. This subject, on the interface between quantum disorder problems and such nonlinear properties as chaos and fractals is expected to have strong influence on the emerging fields of nanoscale devices. The PI has been instrumental in a major conceptual advance in this field, namely the removal of the divergence in a quasiclassical approach. This grant will further develop the applications of the quasiclassical approach. In another project the PI will explore the synergism of the random matrix theory and the quasiclassical methods in their application to the properties of disorder at quantum scale. %%% Small scale (nanoscale) devices have properties whose description sometimes poses a special mathematical challenge. In this continuing work of a distinguished theorist, attempts are being made to try a variety of modern mathematical techniques, such as random matrix theory and quasiclassical approximation in search of a effective and efficient computation of the material properties. This work will advance the state of quantum nonlinear science. ***